Workshop on Algorithmic Research in Midsouthwest (Fall 1992 - Spring 1993)

Four workshops on research on algorithms will be organized at institutions in Louisiana, Oklahoma, and Texas. Each workshop will last one day and will include one or two talks by distinguished researcher from outside the region.